Computational Chemistry by Microcomputer

A one-week workshop is being offered to a group of fifteen faculty participants from institutions that are predominately involved in teaching undergraduates. The workshop is being led by faculty who are knowledgeable in the use of microcomputers to carry out studies in computational chemistry. The unique features of this workshop are that it is providing the faculty participants with a syllabus and with hands-on experience, so as to facilitate the implementation of computational chemistry at their home institutions. The emphasis of the workshop will be on the use of microcomputers in quantum chemistry and in molecular modeling. The software and hardware that are being used is sufficiently inexpensive so that almost any institution now has the resources to incorporate computational chemistry into the undergraduate chemistry curriculum. Computational chemistry is a relatively new area of chemistry, but one that is fast becoming important to both academic and industrial scientists. It is therefore imperative that the undergraduate chemistry student be given some exposure to this area. At present very few institutions provide an adequate introduction to computational chemistry. The workshop is helping to correct this deficiency in the training of undergraduate chemists.